Workshop on Exploratory Research on Engineering the Transport Industries (ETI)

ABSTRACT Proposat #: CMS-0129550 PI: Arun Phadke Institution: Virginia Polytechnic Institute and State University Date: July 6, 2001 This workshop brings together 30 teams of awardees funded by NSF under the 2000 ETI initiative to discuss and disseminate the results of the exploratory research. The research targeted a broad class of complex engineering systems in the modern service industry: those that transport of people, goods, energy, and information, including highways, railways, air transport, shipping, gas-, fuel-, and water distribution pipelines, power distribution grids, communications networks and the Internet. The workshop, scheduled for August 13-14, 2001 in Washington, DC, is also intended to foster a sense of community among the participants which would lead to cross-fertilization of ideas belonging to the different fields of engineering.